RUI: ph Regulation in Medullary Glia

IBN 98-10809 ERLICHMAN The brain is composed of two types of cells termed neurons and glia. Most of what we know about the processing of information in the brain involves the generation, propagation and transfer of electrical signals between neurons within the brain. Although it is clear that neurons play a pivotal role in all brain-related activities such as learning and memory, recent research suggests that glial cells may play a crucial role in normal neuronal function. The importance of glia in normal brain function may be related to their ability to regulate a variety of chemicals accessible to the neurons. The regulation of these chemicals is important to study because these substances that can have profound effects on the production of electrical signals in neurons and thus the type and content of information processed by the brain. Dr. Erlichman will examine role of glia in a region of the brain involved in the regulation of breathing. Using live brain tissue and a special microscope, he will investigate how glia regulate the level of acidity in a region of the brain known as the medulla. Controlling the level of acidity in the body is one of the most tightly regulated systems known. This tight regulation is thought to occur because slight variations in acidity (either too much or too little) can greatly disrupt cell function throughout the body. The medulla is a particularly important region of the brain since neurons at these sites 'sense' changes in acidity by altering their production of electrical signals. These changes in electrical signals ultimately result in a change in breathing, which is one method the body uses to regulate acidity. Investigating the role of glia in this response is exciting because it will provide important new information on how glia help regulate acidity in the medulla and more generally, how the interaction of these two cell types help shape information processing in the brain.